American Indians Young Scholars Program -- EARLY ALERT

The Colorado School of Mines will initiate a three-week, residential, "Early Alert" Young Scholars project in Mathematics for thirty American Indian middle school students entering grades 7 and 8. The program will be held jointly with a Teacher Enhancement project that is sponsored with institutional funds. Emphasis is on critical thinking, problem solving, use of similar triangles and trigonometry to estimate heights attained by student-constructed rockets, and use of LOGO to create American Indian designs and tessellations. Students complete a research project with the advice of a professional mentor from AT&T Bell Laboratories. Career exploration and higher educational goals are an integral part of the program.